An Integrated 370 micron Superheterodyne Imaging Array

AST-0138318
Walker, Chris

Advanced technology in the areas of mixers, device fabrication, micro machining, digital signal processing, and telescope design and engineering will be innovatively integrated to create the first integrated submillimeter heterodyne arrays. These arrays will utilize the latest Nb and Nb-AU diffusion cooled hot electron bolometers (HEB) in an efficient micromachined waveguide mount. These arrays will be used first at the 10-meter Heinrich Hertz Telescope (HHT) operated by the University of Arizona.

This work will take place at the University of Arizona's Steward Observatory where post doctoral and graduate and undergraduate students will participate.
***